Geometric Variational Problems

Abstract- DMS-0104007-Geometric Variational Problems

The principal investigator proposes to continue the study, joint with
R. Schoen, of constrained variational
problems for lagrangian cycles. In its most basic form the problem
can be posed as follows: Consider a symplectic
manifold with a metric compatible with the symplectic form. Fix a
homology class that can be represented by a lagrangian cycle.
Find a lagrangian cycle that minimizes volume
among all lagrangian cycles representing this class and derive optimal regularity of this cycle.
In the case that the symplectic manifold is Kaehler,
with Kaehler-Einstein metric, sufficient regularity of the minimizer
implies that the minimizer is both lagrangian and minimal (zero mean curvature).
If the first Chern class is negative such submanifolds could be unique, in a suitable sense,
and then useful in understanding the geometry of the ambient manifold.
If the Kaehler manifold is a Calabi-Yau manifold sufficient regularity implies
that the minimizer is a calibrated submanifold, a special lagrangian submanifold.
We propose to investigate the existence and regularity of this and
related varitional problems and to study the consequences of these results on the
geometry of Kaehler-Einstein manifolds.

A consequence of the proposal is an existence theorem for special
lagrangian submanifolds of a Calabi-Yau manifold.
This result is an essential part of the program proposed by
Strominger-Yau-Zaslow for the geometric construction of "mirror
symmetry". Mirror symmetry is one of the most interesting and
important problems currently being studied in mathematics and
theoretical physics. At its core it proposes a duality between a class of
manifolds called Calabi-Yau manifolds. This duality allows
computations to be performed on one manifold that yield a result for its "mirror".
Thus computations that are otherwise extremely difficult can be achieved.
The realization of mirror symmetry will effect such diverse subjects
as algebraic geometry, differential geometry, topology, partial
differential equations and string theory.
The current interest in this subject helps bridge the gap between
physics and mathematics. In two-dimensions our proposal has some
close analogies to a well-known model problem
in non-linear elasticity. The regularity theory developed here will
shed light on the difficult regularity problems of that theory.
Finally this problem is the first attempt to make a systematic study
of a variational problem with a geometric constaint.
This idea will have other important applications in
geometry and its applications.